SBIR Phase I: Nanoparticulate Based Coating Approach for Making Thin Film Batteries

This Small Business Innovative Research (SBIR) project focuses on development of a solid state lithium ion thin film battery made by using a lower cost, nanoparticulate based deposition approach. In Phase I, the feasibility of a nanoparticulate deposition approach will be demonstrated by developing a Lithium ion cell with LiCoO2 as cathode, lithium phosphorous oxynitride (LIPON) as the electrolyte and a nanocomposite of carbon nanotubes (CNT) and nanoscale tin particles (~10 nm) as the anode. The cathode and the anode will be developed using a nanoparticulate based coating technique. Deposition of such nanoparticulate coating relies on synthesis of colloids of unagglomerated nanoparticles that can then be deposited using simple liquid phase deposition techniques like spin coating or dip coating. Using a non-vacuum based process to deposit coatings for a Li ion-based battery as compared to physical vapor deposition processes will not only reduce the manufacturing cost but will contribute towards improving the performance of the battery.

Successful completion of the proposed project will lead to significant improvement in the manufacturing of thin film lithium ion solid state batteries.